RAPID: Collaborative Research: Unprecedented Hurricane Ian Nutrient and Organic Matter Inputs to Southwest Florida Coastal Waters

Many coastal systems are facing the threats of continuing development and climate change, including an increased intensity of extreme weather events such as hurricanes. Such storms are now wetter than in prior years because warmer atmospheres hold more moisture. Thus, they release more rainfall and deliver more nutrients and organic matter to coastal areas. This, in turn, leads to phytoplankton blooms with potential for regional “dead zones” or areas with little or no dissolved oxygen. Hurricane Ian, a category 4 hurricane which hit southwest Florida in late September 2022, resulted in immense nutrient and organic carbon inputs to the coastal estuaries and southwest Florida shelf waters and presents an opportunity to examine the effects of a major storm disturbance on a coastal system that is under increasing coastal nutrient stress. The objective of this RAPID project is to examine carbon and nutrient cycling along a gradient of stations from the estuary to low-nutrient shelf waters to determine the rate of change and recovery in this system and the relationship of large hurricane inputs to hypoxia, anoxia, and ocean acidification. These data are being used to develop a regional model to predict the impact of future hurricanes on ocean acidification, phytoplankton blooms, and local hypoxia and anoxia. This study leverages ongoing monitoring programs funded by state and federal management agencies, as well as NSF-supported programs for undergraduate students. It provides partial support for training of postdoctoral investigators and a graduate student. Outreach will include presentations to elementary and high school students.

In September 2022, southwest Florida experienced a direct hit from category-4 Hurricane Ian, resulting in extensive watershed flooding and nutrient- and dissolved-organic-matter-laden estuarine plumes extending more than 50 miles onto the shallow oligotrophic west Florida shelf (WFS). The massive terrestrial organic carbon and nutrient inputs to the southwest Florida coastal and shelf region may be priming this oligotrophic system for extensive phytoplankton blooms, as well as significant changes in carbon chemistry and nutrient cycling that could lead to longer-term regional hypoxia and anoxia. In this RAPID project, the investigators are measuring a suite of carbon and nutrient parameters, as well as carbon and nutrient cycling, at stations in Charlotte Harbor and the adjacent inner WFS system in December 2022, February 2023, and September 2023. The objectives are to assess: 1) a timescale of system responses from shorter (weeks to months) to 1-year impacts post-hurricane; 2) how nutrient availability and forms influence hypoxia; and 3) how hurricane-driven inputs influence carbonate chemistry in this system, specifically the connection between acidification and hypoxia. The investigators are using new data collected in this study and monitoring data from regional state and federal programs in a coupled hydrodynamic-biogeochemical model to understand conditions on the WFS. Hindcast simulations and modeling experiments are assessing how large inputs of nutrients and organic matter affect phytoplankton, oxygen conditions, and carbon chemistry. Modeling experiments are exploring how storms of varying wind and precipitation intensity affect the WFS and estuaries, identifying the tipping point at which the WFS switches from episodic to persistent hypoxia.